Origin and Tectonic Significance of Remagnetizations in Paleozoic Carbonates in the Great Basin of the Western U.S.

At the end of the Paleozoic, the western margin of North America changed from passive to convergent, and lower Paleozoic sedimentary rocks in the Great Basin were remagnetized from S. Nevada to west- central Utah. In northern Nevada, remagnetization did not occur until the Triassic. This study will test if the different timings of remagnetization were the result of different docking times of terranes onto the western North American Margin. The stratigraphic and areal extent and the timing of remagnetization will be determined for each carbonate sequence and it will be determined if the remagnetization was normal or chemical. The remagnetization will then be related to known regional tectonic events. The results of this study will provide important information about remagnetization processes and will have direct bearing on tectonic reconstructions of western North America during the late Paleozoic